RIA: Quantum Control of Light Generation in Mesoscopic Heterojunctions

9409633 Imamoglu The quantum control of photon generation processes in semiconductor stuctures is of substantial interest both from a fundamental and a practical point of view. The goal of the proposed work is to investigate the fundamental limits to quantum control and noise suppression in light emitting mesoscopic semiconductor heterojunctions. This proposed research will emphasize the generation of heralded single-photon states, which represent the ultimate limit in the quantum control of light generation. Using a semi-classical analysis, the principal investigator has already predicted that strict regulation of the photon emission times can be achieved by utilizing the Coulomb blockade of electron and hole injection in mesoscopic semiconductors. Theoretically, the emphasis of the proposed work would be on the newly developed quantum Monte Carlo wave-function approach to dissipative electron dynamics in semiconductors and its application to the quantum analysis of heralded single-photon state generation. The experimental work aimed at the regulation of the photon generation process in mesoscoptic P - I - i - I - N quantum well structures will also be pursued concurrently. It is anticipated that the novel features of heralded single-photon states will find many applications, which include reliable information encoding at the single-photon level and noise-free amplification. ***